Modelling of Wind for Structural Load Combinations

Original wind speed records in the form of continuous gust strip charts are examined to develop pertinent statistics of wind speeds for use in existing probabilistic load combination methods. The wind is modelled as a square wave Poisson pulse process. The statistics obtained are expected frequency of structurally significant wind speeds, mean duration of wind speed, and the probability distribution of the mean wind speed during an occurrence. The statistics are verified by comparing extreme wind statistics obtained from the developed model with those obtained previously by other researchers. Various sites from across the contiguous U.S. are used in the development of the statistics. Results from this work will contribute to improve mapping and gust criteria for structures design, and will be useful in structural reliability modeling.